Purchase of X-Ray Crystallographic Equipment

This award from the Chemistry Research Instrumentation Program will assist the Department of Chemistry at the University of California, Irvine in the purchase of an x-ray diffractometer with a rotating anode x-ray source, associated data collection and analysis system and an upgrade of an older x-ray diffractometer. This new instrumentation will enhance greatly research in a number of areas including the following: 1) Synthesis and study of ligand-bridged transition metal compounds, 2) The chemistry of low-valent organosamarium (II) complexes, 3) Synthesis and chemistry of httrium and lanthanide metal complexes, 4) Silsesquioxanes as models for aluminosilicates, 5) Chemistry of organosulfur compounds, 6) Catalytic asymmetric synthesis of quaternary carbon centers, 7) Synthesis of complex polycyclics by palladium catalyzed polyene cyclizations, 8) Structural studies of bridgehead alkenes, 9) Molecular deformations and chemical reactivity. The rotating anode capability will permit structural studies which are not possible with stationary source radiation. %%% The x-ray diffractometer is used to make accurate and precise measurements of the full three-dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.